Partial Support of the 3rd International Congress of Plant Molecular Biology, October 6-11, 1991, Tucson, Arizona

The Third International Congress of Plant Molecular Biology will be held October 6-11, 1991 in Tucson, Arizona. The previous meetings were highly successful in bringing together plant scientists from throughout the world. This projected meeting promises to be even more exciting and thus probably even more truly global.***